In-Situ Thermal Stabilization of Soils Using Plasma Arc Technology

The objective of this research is to evaluate the concept of using plasma torches that can effectively be operated in situ in a cased borehole surrounded by a geo-material medium. The plasma torch would be lowered to the bottom of a small diameter, cased borehole. By raising and operating the torch at progressively higher levels the borehole casing is rapidly melted opposite the plasma flame, and a column of soil (and/or a mixture of soil & waste) is heated and converted into a stabilized vertical mass. Successive (or simultaneous) operations in adjacent boreholes, properly spaced, would likewise stabilize an entire region.